A Study of Risk Perception and Public Response to an HIV Crisis Communication

This study will investigate public response to an HIV crisis communication occasioned by the disclosure that a local emergency room physician carried the HIV virus. A probability sample of households in the hospital's service area will be surveyed. The project will attempt to identify factors associated with the public's differential response to this announcement. Among other issues, the process whereby individuals construct definitions of personal risk and the role of social networks as "decision framers" in this process will be studied.